Magnetic Recording Research

We intend to make a strong contribution toward the achievement of a density approaching 109 bits per square inch in high data rate mass storage systems within the next decade. We are placing primary emphasis on principles and techniques that will permit the increase of track density in longitudinal and perpendicular magnetic recording, with a provisional goal of order 104 turns per inch. The thrust of the work will be in magnetics, and will involve studies of the edge- reading and writing properties of inductive and magnetoresistive recording heads and of the edge definition of thin film media. The work will be carried out as a collaboration between Washington University and Hewlett-Packard Laboratories. The individual tasks to be undertaken have been formulated jointly, based on the experience of the current NSF supported collaboration. This collaboration is producing tools appropriate for the proposed work, and has resulted in a more sharply focused approach. Theoretical work and interpretation of experimental results will be concentrated at WU, fabrication of media and devices, experimental facilities, and large scale computation will be provided by HP labs for the WU principal investigator and graduate students and for the HP engineers and scientists directly participating in the work.